A SURANet Gateway for OUINET

The University of Southwestern Louisiana has several researchers who would benefit from access to supercomputers and access to other researchers connected to the NSFNET. The campus will be connected to SURANET, a mid-level network which attaches to the National Science Foundation Network, NSFNET, through medium speed (56,000 bits per second) communication lines. The proposal requests support to purchase a gateway system and fund communication lines to connect the campus network to NSFNET. The communications lines will connect the campus to a similar gateway at Louisiana State University which is a main node on the regional network, SURANET.***